U.S.-Bolivia Cooperative Research: Assessment of the Transport, Storage and Environmental Impacts of Heavy Metals within the Rio Pilcomayo Basin, Southern Bolivia

9907976
Miller

This Americas Program award will fund a US-Bolivia research project on the environmental impacts of mining in Bolivia. Collaborators are Dr. Jerry R. Miller, Indiana University, Bloomington and Ing. Jorge Tejerina Oller, Universidad Autonoma
"Juan Misael Saracho", Tarija, Bolivia. The primary objective of this project is to increase our understanding of the transport and fate of heavy metals within river systems in general, but particularly within the Pilcomayo-Pilaya system of Bolivia. Specific objectives are to determine the role of geomorphic processes, and the changes in these processes on the primary depositional patterns of heavy metals, to gain a preliminary understanding of the phase-specific distribution of selected metals within the deposits and to determine the relative importance of historic and modern mining operation on sediment and water quality within the Rio Pilcamayo valley. With this information, the researchers will develop a conceptual/empirical model to describe the transport and storage of sediment-bound heavy metals along the river. The results of the investigation will provide an initial step in understanding the environmental impacts associated with heavy metal contamination from mining operations, which could be used by several organizations to develop sound management and restoration strategies.

***